SHF: Small: Pushing the Frontier of Linear-Time Model-Checking Technology

Model checking is a technique for verifying the correctness of computer
systems. Different implementations are in wide industrial usage today.
There are still, however, many large gaps in our understanding of the
algorithmic issues involved in model checking, and the technology is still
greatly challenged by industrial designs. For example, in hardware-design
verification, it is rarely possible to apply existing tools to complete units
with clear functionality. This project is pushing the frontier of this
technology with the goal of scaling its applicability to functional system
units by developing novel scalable algorithms for model checking. The
result will be increased reliability of computer systems.

This project will explore the mathematical approach to design
verification that uses automata theory as a unifying paradigm for design
specification and verification. The automata-theoretic approach separates the
logical and the combinatorial aspects of reasoning about systems. The translation
of specifications to automata handles the logic and shifts all the combinatorial
difficulties to questions about automata, yielding clean and asymptotically optimal
algorithms. While the fundamental theory is well understood, there are
still many challenging gaps and improved algorithms can enhance the
scalability of this approach significantly. This project investigates ways of improving
automata-theoretic algorithms so they are more suitable for model checking
at scale.